Mathematical Sciences: NSF Young Investigator

This research, supported by the National Science Foundation Young Investigator award, will address theoretical and methodological issues in Bayesian statistical inference. The first topic concerns information-theoretic diagnostics to assess and construct prior distributions. The second topic involves using function space derivatives to perform sensitivity analysis. The National Science Foundation Young Investigator award recognizes outstanding young faculty. This award recognizes the recipient's strong potential for continued professional growth as a research mathematician and for significant development as a teacher and academic leader.//